Biomimetic Ion Channels

This Research Opportunity for Women Career Advancement Award is in the general area of organic chemistry. Dr. Leah L. Frye of the Chemistry Department of Rensselaer Polytechnic Institute will synthesize a series of biomimetic potential ion channels. Once a macromolecule which will facilitate ion transport across phospholipid layers is prepared, systematic modifications of its structure will be performed to ascertain what the optimal locations of heteroatom-containing functional groups (potentially metal binding sites) are for ion transport and how the rate of transport is affected by different functional groups. A crown ether will be used to construct the central core of the macromolecule and cholesterol, attached by ester bonds, will be used for six side chains. This award will enable Dr. Frye, building on her experience in organic synthesis, to develop expertise in evaluation of ion transport across lipid bilayers. If this initial project is successful, many additional projects will become viable and Frye will have established a new direction for her research career.